SuraNet Phase II

This proposal is a renewal of the 2 year award made to the Southeastern Universities Research Association to implement a regional network in the southeastern section of the country comprising 13 states and the District of Columbia. SURAnet became operational in March 1987 and has grown to 44 nodes, including 30 universities and 14 federal research sites. The SURAnet Phase II proposal specifically solicits participation by the widest possible community of users and servers. In addition to the SURAnet Operations at the Network Operations Center (NOC), which is attached to the NSFNET Backbone network and which provides nationwide connectivity for the region, SURAnet will coordinate the localized operations and services of Smart Nodes or key sites in each state. These Smart Nodes will be connected by a high speed backbone net (1.5 million bits per second). Other nodes or institutions in the state will be connected to the Smart Nodes via line speeds of 9.6Kbs, 56Kbs, or 1.5Mbs depending on local needs. Cost sharing is offered by each institution participating in the network through implementation of local area networks, network information services, and the payment of annual membership fees to the SURAnet Operations Center.***